Families, Organizations & Classrooms Understanding Science, Sustainability, & Service (FOCUSSS)

The goal of the FOCUSSS project is to engage high school students in a need-to-know pursuit for learning science that leads to the discovery of sustainable resources and practices for use in their communities. The project is a collaboration among Loyola University Chicago, Adler Planetarium, the Chicago Museum of Science and Industry, and four local, urban high schools to construct student and family activities involving essential science concepts and tools within a sustainability context. Through this project, high school students engage in school and family activities around specific themes related to sustainable resources and practices in their communities, such as the availability and access to nutritious food, the quality of air or availability of clean water resources, the effective use of energy resources, or similar topics. The project intends to help students develop as informed and responsible citizens who utilize the principles and tools of basic science for their decisions and actions. The blended instructional model that deeply involves family and community will be studied for its potential to make formal learning relevant to the lives of children and to the health of the community.

As an exploratory project, the project tests a curriculum design that bridges formal and informal education and draws upon the resources in the community. Students interact with online learning communities that include their teachers, their families, fellow students, and sustainability organizations. Participating teachers are involved in intensive workshops that focus on developing sustainability principles within inquiry-based science curricula and lessons plans. Service projects provide opportunities for students to invite their families to participate and be supported in family workshops at local museums and in site visits to organizations involved in related initiatives. Data collection includes surveys administered to students and participating family members, observations, interviews, classroom assessments, and other open-ended instruments intended to surface themes and related variables. These will inform the design of the materials and activities as well as the assessments.

The project deliverables include fully implemented classroom lessons supported by family projects and online sustainability courses for students and families. The project fosters students and families connecting to their communities, resources and organizations in order to improve the quality of their neighborhoods and to promote individual, family, and public health.